Doctoral Dissertation Improvement Grant: Cultural Responses to Environmental Hazards: Agricultural Innovation During the Early Intermediate Period on the North Coast of Peru

Under the supervision of Dr. John W. Rick, Ignacio Cancino will analyze data gathered during his archaeological excavations in ancient agricultural fields on the north coast of Peru. The locale, the Queneto Quebrada, is now a barren alluvial fan on the northern margin of the Virú Valley, an oasis-like valley located on the hyper-arid coastal desert. In this setting, abandoned grid-like rock-bordered agricultural plots are associated with canals and shallow agricultural terraces as well as several architectural constructions of Pre-Hispanic origin. Mr. Cancino's excavations and laboratory analysis focus on the recovery of data that will help to determine the chronological position and the agricultural significance of these features. Regarding these aims, preliminary research in the area led Mr. Cancino to consider these agricultural structures as features constructed to opportunistically take advantage of two hydrologic consequences of torrential rains caused by the El Niño (ENSO) phenomenon: 1), unusual runoff water over barren slopes and 2), unusual recharging of aquifers located northeast of the Queneto Quebrada. The construction and use of the agricultural features could have been a strategic cultural response to a variable and unpredictable environment, driven by El Niño torrential rains. Associated architecture and material culture in stratigraphic position date the agricultural features as constructed during the Early Intermediate Period (200 BC-600 AD).

The recognition of several soil properties and the recovery of macro and microbotanical remains will assess anthropogenic soil modification in the area and will also shed light on the nature of agricultural practices and examine the question of whether these practices may have been societal strategies to cope with El Niño torrential rains. In addition, dating recovered material, such as carbonized botanical remains and phytoliths, will help to determine the absolute age of the agricultural features.

There are few examples in the archaeological literature of the cultural responses of pre-Hispanic Andean societies to abrupt climatic phenomena such as El Niño torrential rains. However, the way pre-Hispanic societies responded to these phenomena had profound consequences for their vulnerability or resilience through time. Changing land use patterns and diversifying production systems may have been critical to the survival of Andean societies in the past. Beyond the specific aims of this archaeological project, the study will contribute knowledge on past agricultural practices that may help confront current abrupt climatic phenomena that are threatening productivity today. As it is widely recognized, the potential effects of severe El Niño along the New World West Coast could be dramatic for the people and economy of the area. In this way the study demonstrates the importance of archaeological research to solve not only questions about the past but also its capacity to contribute with knowledge relevant to present day societies.